RI-Medium: Collaborative Research: Robotic Parkour--Dynamic Climbing

Proposal Title: RI-Medium: Collaborative Research: Robotic Parkour--Dynamic
Climbing
Institution: Northwestern University
Abstract Date: 05/29/08
We propose to explore design, control, and motion planning for robotic parkour---the
highly dynamic form of locomotion that includes ascending chutes by leaping back and
forth between opposing walls.
Our broad goal is to give robots access to difficult-to-reach places by taking full
advantage of their dynamics and the potential reaction forces afforded by the
environment. The proposed work will address two challenge problems:
1. To design, build, and control a planar robot to dynamically climb in a rigid vertical
chute, and
2. To design, build, and control a planar robot to reliably move from an initial state to
any dynamically reachable goal state in a complex vertical environment of footholds at
various orientations.
The true goal of this work is not to build speciﬁc-climbing robots, but rather to
address scientiﬁc issues fundamental to dynamic legged locomotion in
non-trivial terrains by confronting these two challenges.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0803734 PI Name:Lynch, Kevin
Printed